RIA: Partitioning and Placement for Optimal System Performance

The objective of this research is to produce efficient and effective FPGA partitioning and placement tools that are capable of simultaneously meeting a number of objectives subject to several design requirements in order to achieve optimal system performance. Dr. Saab has developed two algorithmic methodologies for the solution of large-scale combinatorial problems with several constraints. These two general techniques are: Stochastic Evolution which is a probabilistic algorithm, and the Limited Exhaustive Search Strategy which is a strict descent iterative algorithm. Initial experimentation with these two techniques is quite encouraging and optimal solutions are achieved in certain applications. The goal is to use these two general optimization techniques to obtain effective and efficient FPGA partitioning and placement tools. This research will also investigate other approaches for partitioning and placement such as genetic algorithms, neural nets, and tabu search, and can potentially stimulate the use of Stochastic Evolution and the Limited Exhaustive Search Strategy for the solutions of many large and difficult engineering problems. FPGA design tools are immediate consequences of this effort.